Sting Balance For A Wind Tunnel

In this project, the Aeronautical Engineering Department at California Polytechnic State University, San Luis Obispo is using an Aerolab sting balance to utilize fully the capabilities of the Cal Poly wind tunnel. This system exhibits the basic principles of aerodynamic design and introduces the student to modern instrumentation and experimental techniques. Students conduct tests of realistic (3-dimensional) models, investigate pitching movement (nose up), study asymmetric characteristics, test devices without a two-dimensional counterpart, and investigate stability and control. The sting balance system is used in several required undergraduate courses of the Aeronautical Engineering Department, and significantly improves undergraduate instruction.